A CCD Digital Imaging System to Foster Student Research on the Structure of Galaxies

Vassar College will purchase a computer-controlled cryogenically cooled CCD imaging system which will be mounted on the existing Fecker 15-inch Cassegrain reflector. With this configuration students will be able to observe approximately 20th magnitude stars with a five minute exposure. To take advantage of faculty expertise, work will concentrate on the structure of galaxies. Specific student projects will examine local spiral structure in the Milky Way through star counts in the direction of molecular clouds and accurate color- magnitude diagrams of galactic clusters. The structure of other galaxies will utilize near-infrared imaging to determine the distribution of late-type stars with respect to the prominent blue structure. In carrying out these projects, students will learn the important modern techniques of data acquisition and reduction, acquire a realistic understanding of astronomical measurements, and be better prepared to enter graduate programs. Those students who do not become professional astronomers will benefit from their first-hand participation in a serious effort at scientific discovery. The University will contribute an amount equal to the award.